U.S.-France Cooperative Research: Separation of DNA Molecules Using Combination of Pulses of Electric Field

This three-year award will support U.S.-France cooperative research in polymers and biophysics and involves Sergei Obukhov of the University of Florida, Michael Rubinstein of Kodak and Jean-Louis Viovy of the Ecole Superieure for Industrial Physics and Chemistry, Paris, France. They propose a study of DNA gel electrophoresis, which is the basic method for DNA separation. The objectives of their research are (1) to develop a detailed understanding of the structure of a DNA molecule moving through a gel in a strong electric field; and (2) to improve separation techniques of long chain DNA molecules. They will work on a set of analytical and closely related numerical models which allow simulation of the motion of ultra large DNA molecules. The models will be tested against other numerical models and experiments developed by the French investigators. The U.S. investigators bring to this collaboration considerable expertise in polymer theory and physics. This is complemented by Dr. Viovy's expertise in molecular modeling and the experiments in DNA electrophoresis currently in progress in Paris. Their research addresses the ultimate goal of improving the accuracy and efficiency of current DNA separation techniques. These improved techniques are essential for mapping the `human genome` and for advancements in molecular biology and bioengineering.